Acquisition of Equipment for Nanometer-Scale Thermal Processing

ABSTRACT CTS-9622178 Goodson REG Support was requested for a scanning probe microscope and a pulsed Nd:YVO4 laser to be used to control temperatures in manufacturing processes at very small length scales. Applications to electronic circuits, MicroElectroMechanical Machines and biomedical components are envisioned.